Support for the Division of Environmental Biology (DEB) Water and Watersheds Grant Competition

9613061 Binaut This contract provides technical and administrative support for processing proposals received in the Division of Environmental Biology's Water and Watersheds Grant Competition. Supported activities include initial data-entry, panel send-out, and decline data-entry/jacket preparation for proposals received by the 7 May 1996 deadline. Initial data entry will include assembly of file jackets, entry of data into the NSF mainframe computer, and mailing of acknowledgment cards and attachments. Panel send-out will include mailing of appropriate proposals, review forms, panel information, and other pertinent documents to panelists. Decline data-entry/jacket preparation will include entering decline data into the NSF computer, generating decline letters/labels, and assembling decline jackets and PI-packages.